Dissertation Research: Protohistoric Faunal Exploitation in Western Brong-Ahafo Region, Ghana

Under the direction of Dr. Ann Stahl, Mr. Andrew Black will collect data for his doctoral dissertation. He will pursue combined ethnographic and archaeological research in the Brong- Ahafo region of central Ghana. The area is interesting because it spans the transition from forest in the south to dry savannah in the north and this ecotonal quality allows residents to exploit a wide range of resources. Taken together archaeological, historic and ethnographic data allow the reconstruction of settlement and subsistence over a ca. 500 year period. Mr. Black will examine food utilization and the study will consist of two phases. He will conduct four months of ethnographic and ethnoarchaeological research to learn how wild and domestic animals are integrated into contemporary diet and how diets can be reconstructed from faunal remains. Secondly, he will analyze collections from at least three different archaeological sites which span the period from 1400 AD to 1930 AD. The ethnographic data will be used to help interpret the archaeological material, serve as a basis for comparison, and help to model the essential components of prehistoric subsistence patterns. The late prehistory and history of this region is complicated because it witnessed the development of complex polities as well as the imposition of a European colonial system. Local groups relied not only on domestic animals which they raised, but also on hunted and gathered wild resources. Given the significant changes in social organization over this period, Mr. Black hypothesizes that subsistence practices changed as well and he wishes to understand how local residents changed their hunting and herding strategies to adapt. This research is important for several reasons. While it has long been assumed that such Western African peoples have been solely dependent on domestic resources for hundreds of years, anthropological data suggests otherwise. Understanding successful adaptations such as this may be useful in developing strategies in this drought ridden and rapidly changing part of the world. The project will also assist in the training of a very promising young scientist.